Quasi-Rigidity

This project is to study instabilities that develop in rotating bodies which are deformable. Of primary interest are those instabilities that do not occur when the body is assumed to be rigid.